A Digital Library Network for Engineering and Technology

This project is developing a Digital Library Network for Engineering and Technology (DLNET), to facilitate the lifelong learning of engineering faculty, practicing engineers and technical professionals. Towards this end the project proposes to develop a content hosting platform, design standardized templates for posting new content, set up a process for electronic review and validation of new materials, and provide a portal through which content can be both posted and accessed. This portal is intended to provide the gateway to education and research materials published by universities and professional associations in the various engineering disciplines including the Institute of Electrical and Electronics Engineers (IEEE). It also provides the means to contribute new and relevant material efficiently and quickly.